Seasonal and Interannual Variability in the Greenland Sea

In this project, the P.I.'s will describe the seasonal and interannual variability in the Greenland Sea, using a very high-quality set of temperature, salinity, and owxygen data collected in 1988-89 in support of the Greenland Sea Tomography study. Other data from the last three decades will be used to investigate intereannual variability in this region, which is of critical importance to understanding the role of the ocean in climate variability.